Chondroitin Sulfate in Neuromuscular Synaptogenesis

Gordon 9601916 The functioning of the nervous system depends on an intricate network of connections between cells. Much of the communication occurs at tiny physical contacts between cells called synapses. Learning and memory are thought to involve changes in the strength of the communication through collections of synapses. It is therefore important to understand how synapses are built and function by dissecting them into their component molecules. A well defined model system for this research is the neuromuscular junction, a large isolated synapse between a motor neuron and a muscle fiber. Several molecules identified originally at the neuromuscular junction have now been found at synapses throughout the nervous system, suggesting common molecular mechanisms underlying synapse formation and maintenance. Dr. Gordon identified chondroitin sulfate, a carbohydrate component found attached to molecules on the muscle cell surface, plays important roles in the molecular organization and development of the synapse. Further studies are examining the role of chondroitin sulfate in both the structure of the synapse and in signaling required for synapse formation. The studies provide an exciting opportunity to identify new components of the synapse and to gain enhanced understanding of the mechanisms governing communication between nerve cells in the brain.